Support of Tenth U.S. National Congress of Applied MechanicsJune 16-20, 1986, University of Texas, Austin

Partial funding is provided for the 10th U.S. National Congress of Applied Mechanics, June 16-20, 1986, University of Texas-Austin. It is planned as broadly inclusive in solid and fluid mechanics and emphasizes the emerging areas of dispersed systems, texturing and micromechanics of solids, mechanics of damage, and mechanics of processing.